U.S.-India Workshop on Wind Engineering Research, Dec.17-20 1985, Madras, India (U.S. Currency Award only)

This project supports participation by 8 U.S. scientists in a U.S.-India workshop to identify specific areas in wind engineering research where joint projects can be developed. In addition to a keynote speech, plans call for 16 technical papers, a field trip, group discussions, and definition of possible areas of joint research. Topics will cover instrumentation and field measurements, analysis of data and characterization of wind behavior, and wind tunnel model studies. In addition to the preprints containing the technical papers, proceedings will be published containing summaries and recommendations on research areas. This project will encourage scientists from both countries to exchange information and to develop research activities in areas of importance to the two countries such as the area of wind effect on structures.